SGER: Exploratory Study on Aerosol Synthesis of Nanoparticles (Effect of Electric Fields in Flame Reactors)

ABSTRACT CTS-9612107 The effects of particle charging in synthesis of nanosize ceramic powders in simple flame aerosol reactors will be investigated. On this basis, the validity of a predictive model which would indicate the electric fields can reduce the particle size and narrow the size distribution will be tested. There are conflicting opinions in aerosol community concerning the effect of the electrical field on particle size and size distribution. The role of charging will be tested in premixed flames. Synthesis of oxides of Ti, Si and Sn will be obtained from their chlorides. The particles will be charged either by ionic wind in the flame by a corona discharge or by orienting the ions generated in the flame to external electrodes. The materials to be tested were selected because of their diverse material properties and their technological relevance. The proposed concepts may lead to significant improvements in generation of finer, uniform nanoparticles, eventually with controlled cristallinity, at large production rates, if the proof-of-concept tests will be successful. Direct applications of the research are in manufacture of fumed silica powders and titania for pigments, ceramics, semiconductors and cosmetics